Dissertation Research: The Ecological Implications of HabitFragmentation: A Field Manipulation of Patch Size and Connectivity

The phenomenon of habitat fragmentation, when remnants of native vegetation are reduced in size and separated from adjacent, continuous habitat, is extremely widespread and poses one of the most serious threats to the earth's biological diversity. Ecological observations of habitat fragments have shown that in general, species diversity decreases as patch size decreases. Vegetated connections between fragments are often used by animals, and are presumed to increase the probability of species' persistence in fragments. However, studies published to date have several major limitations: Patches are typically not measured prior to isolation; it has rarely been shown that animals preferentially use connections between patches; and organisms' basic life history characteristics are often not examined in relation to their numerical response to habitat fragmentation. No studies are published which have experimentally manipulated both fragment size and connectivity under field conditions and compared species' responses in the manipulated plots to those in adjacent control plots. The research proposed here, to be done in native mixed- grass prairie near Boulder, Colorado, USA, involves experimentally creating habitat patches of three sizes and manipulating presence or absence of connectivity to adjacent, continuous habitat. The research will also simulate the spatial configurations in four basic sequences of land transformation and fragmentation: edge strip sequence, corridor sequence, dispersed patch sequence, dispersed patch sequence and four nuclei sequence. The four sequences will simultaneously convert equal areas of grassland from intact to cleared habitat, but the spatial configuration of the intact habitat will vary among sequences. By studying insect dynamics, he will be able to examine the extent to which animal populations are impeded or enhanced by fragmentation processes. In addition to examining overall patterns of plant and insect species richness and diversity in experimental and control plots, he will compare the movement responses of three focal insect species which exhibit different degrees of vagility and modes of feeding. The results will contribute to their understanding of the ecological implications of particular spatial configurations, and will potentially guide ecologists as well as designers and planners in their decisions regarding land use projects.